Physics and Chemistry of Semimagnetic Semiconductors

This is a collaborative interdisciplinary program (with Yaacov Shapira at Tufts University and Aaron Wold at Brown University) to study physics and crystal chemistry of semimagnetic semiconductors, specifically manganese, iron, nickel and cobalt- doped stannite crystals, II-VI compounds containing manganese and iron, and manganese-chalcopyrites. Emphasis will be on large polaron effects in stannites, metal-insulator transition, magnetism and polaron formation in iron-alloys, nonlinear properties and novel states of mercury-cadmium-iron-selenium, and crystal chemistry to determine how magnetic ions are incorporated in covalently-bonded semiconductors. Experimental techniques will include Raman scattering, magnetoreflectance, luminescence, magnetization, susceptibility, electrical transport and nonlinear optics.